Postdoctoral Research Fellowship in Biosciences Related to the Environment for FY 1997

Abstract DBI 9750190 Gregory M. Erickson This action funds an NSF Postdoctoral Research Fellowship in Biosciences Related to the Environment for 1997. This fellowship provides an opportunity for the Fellow to gain additional scientific training beyond the doctoral degree and to pursue innovative and imaginative into the fundamental mechanisms underlying the interactions between organisms and their environment at the molecular, cellular, organismal, population, community and/or ecosystem level in any area of biology supported by the Directorate for Biological Sciences of the National Science Foundation. Each fellowship supports a research and training plan to be carried out in a sponsoring laboratory. The research and training plan for this fellowship is entitled "How bones of amphibious fish are modified for terrestrial locomotion during evolutionary water-to-land transitions." The emergence of vertebrates onto land was made possible by biomechanical modification of the appendicular skeleton. The nature of such changes is being determined by testing the biomechanical properties of bones from amphibious fish and their aquatic sister taxa. The results are important for understanding how bone form and function are regulated by mechanical demand during evolution.